PYI: Robust Algorithms in Computational Geometry

The project will pursue new research directions in computational geometry. It will address numerical issues by 1) creating robust algorithms that have provably reliable rounded arithmetic implementations and 2) developing techniques for reducing the amount of precision required when exact arithmetic is used. It will also address applications in manufacturing, for example, by developing algorithms for automated layout of patterns on cloth.